CSR: Medium: Collaborative Research: The Commutativity Rule for Scalable Systems Software

After decades of reliable improvement, processor speeds have
flattened; for the foreseeable future, computers will add processing
power by adding more processors, rather than faster ones. This is a
tremendous challenge for software designers. It's far too easy for
software using multiple processors to burn up a growing fraction of
available processing power on coordination overheads like locking,
rather than actual work. That is, it's far too easy for software to
not scale: to get slower as processors are added. And an important
reason for this is simply that scalability is poorly understood. Some
programs don't scale because they're badly written, but others don't
scale because their goals are fundamentally impossible to accomplish
in a scalable way. Programmers lack effective tools for high-level
reasoning about software scalability limitations, and thus waste
effort on both impossible and uninteresting tasks.

We will produce the first well-grounded and formal reasoning procedure
for scalability that is flexible enough to apply to an entire
operating system. Our scalability rule links commutativity and
scalability. We characterize software interfaces as more or less
inherently scalable depending on the contexts in which those
interfaces commute: the more commutative an interface (that is, the
more often the order of its function calls doesn't matter), the more
scalable an implementation can be. We prove that a scalable
implementation exists for any commutative context. This idea can
already guide software designers in developing easily-scalable
interfaces, but we will also provide a set of automated tools for
measuring interface commutativity and for finding implementation
scalability bottlenecks, and evaluate our ideas in a highly-scalable
operating system. The resulting tools and ideas could make scalable
software far easier to design and program, and thus help software
designers provide the software performance on which so much of our
economy depends.